Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

PROJECT SUMMARY
The Department of Mathematics at University of Pittsburgh proposes to
build a medium to large-scale scientific computing environment for
research in the mathematical sciences. The computer equipment to
be purchased includes an Intel 8 processor shared memory computational
server, a four node Intel cluster and an Intel file server, all running
Linux.

This computing environment will enhance ongoing research in several
ways. The availability of a local infrastructure for the investigation of
shared and distributed memory techniques will result in a significant
reduction in the time needed for developing software. The currently
available computational power would be substantially expanded allowing for
increased size and complexity in test problems and simulations. The
investigators will be able to share a complete, constantly updated
state-of-the-art computational science environment.

The computing equipment will support several research projects, including
in particular: computational methods for fluid dynamics, numerical
modeling of flow in porous media, numerical methods for problems with
complementarity constraints, and computational neuroscience.